Conference: Motives and Periods

Motives were introduced by Grothendieck in an attempt to unify
cohomology theories and to reformulate the Weil conjectures. As
with other great mathematical ideas, it turned out there are many
other reasons for studying motives. The most spectacular recent
success of the idea of motives was Voevodsky's proof of the Milnor
conjecture for which he received the Fields medal in 2002. There
have been several other important applications of motives to problems
in algebraic geometry and, as a language, the theory has a much
broader impact reaching into algebraic number theory and representation
theory via the Langland's program. Furthermore, recent developments
indicate connections between motives, periods, and physics. The
proposed conference intends to bring together researchers from
different areas that use motives. To our knowledge, this is the
first conference of this kind.

The theory of motives provides a framework that has proved to be a
fundamental tool in clarifying and explaining some of the most
difficult unsolved problems in algebraic geometry and mathematical
physics. In recent years there has been dramatic progress in this
direction and motives have evolved from a largely conjectural theory
to a theory that is concrete enough to provide a tool for answering
problems. The proposed conference intends to have leading experts
speak on their various areas of research emphasizing the connections
between different fields. The immense progress in the study of motives
and the many interactions of this theory with other branches of
mathematics has led to a certain degree of inaccessibility, especially
for graduate students and non-specialists. We intend to bridge these
gaps by having a number of distinguished speakers give survey talks
on different subjects. Last not least, we are planning to provide
opportunities for young researchers to present their results.